ALVIN Handling System Modifications on R/V Atlantis

ABSTRACT

03 December 2010
Proposal Number: 1063482
Institution: Woods Hole Oceanographic Institution
PI: A. Suchy

The proposal requests one Shipboard Scientific Support item for Woods Hole vessels; namely A-frame structural and system up-grades for R/V ATLANTIS in order to safely recover and deploy the Replacement Human Occupied Vehicle (RHOV), otherwise known as the “ALVIN Replacement”. This item is essential to make the RHOV fully operational in support of science.

Broader Impacts: The RHOV, like the ALVIN itself, will be a unique national asset. Woods Hole vessels support federally-funded scientific research throughout the world’s oceans and routinely expose graduate and undergraduate students to seagoing oceanography. All told, the KNORR, ATLANTIS and OCEANUS are scheduled to complete nearly 700 NSF sponsored days in 2011.